The Rhode Island Network for Computational Chemistry and Physics

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at Brown University acquire computer systems to upgrade the existing computer network. This equipment will enhance research in a number of areas including the following: (1) interfacial dynamics of hydrogen in metals (2) quantum simulations of adsorbed hydrogen on metal clusters (3) trial wave functions and invariants, and (4) vibrational relaxation of polyatomic molecules in liquids. A network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.